Contactless isomotive dielectrophoresis for high throughput single cell spectroscopy

Single-cell measurements are transforming biological research by revealing differences among individual cells that are hidden in population averages. However, current technologies capable of measuring the electrical and biophysical properties of individual cells are often slow, costly, and inaccessible to many biological researchers. This project will develop a new microfluidic technology that enables rapid, label-free analysis of individual cells based on their dielectric properties, which reflect cellular structure, composition, and physiological state. By increasing single-cell dielectric spectroscopy throughput from fewer than one cell per minute to potentially tens of cells per second, the project will provide researchers with a powerful and accessible tool for studying cell heterogeneity, environmental stress responses, and disease-related cellular changes. The technology has broad applications across biology, biotechnology, environmental health, and bioengineering. The project will also support the education and training of undergraduate and graduate students in microfabrication, microfluidics, quantitative biology, and entrepreneurship, while fostering partnerships between academia and industry to accelerate translation of research discoveries into practical technologies. The work advances the national interest by promoting scientific discovery, supporting workforce development in advanced manufacturing and micro/nanotechnology, and enabling new approaches for understanding cellular responses to environmental and biological challenges.

This project will develop and validate a contactless isomotive dielectrophoresis (c-isoDEP) platform for high-throughput single-cell dielectric spectroscopy. The research has three objectives: (1) design and fabricate a polymer-based microfluidic c-isoDEP device guided by numerical multiphysics modeling; (2) increase measurement throughput through optimization of device geometry, operating parameters, continuous-flow methods, and parallelization strategies; and (3) demonstrate biological utility by characterizing dielectric responses of whale lung cells exposed to hexavalent chromium, a widespread environmental toxicant. The platform combines contactless dielectrophoresis with a unique isomotive electric-field geometry that enables direct extraction of frequency-dependent cellular dielectric properties from particle trajectories. The approach leverages recent advances in microfluidics, low-conductivity cell media, and high-frequency electronics to overcome longstanding limitations in AC electrokinetic spectroscopy. Expected outcomes include a scalable, low-cost system capable of analyzing individual cells one to three orders of magnitude faster than conventional electrorotation-based methods while maintaining broad-frequency spectral information. The resulting datasets may also support future artificial intelligence and machine-learning approaches for cell classification and phenotyping. More broadly, the project will establish a new analytical platform for studying cellular heterogeneity, toxicology, physiology, and other biological processes requiring sensitive, label-free single-cell measurements.